Highly Correlated Electron Phenomena in d- and f-Electron Systems

Phenomena associated with valence fluctuations, heavy fermions, superconductivity and magnetism in narrow-band materials will be investigated as part of a joint research program between U.C.S.D. and the University of Michigan. We shall concern ourselves with electron spectroscopy, both labor-atory and synchrotron.